Special Year in Number Theory and Combinatorics

Proposal Number: 0412622
Proposal Title: Special Year in Number Theory and Combinatorics
Received on 12/17/03
Principal Investigator: F. Garvan
CO-PI(s): Miklos Bona
Neil White
Richard Crew
Institution: University of Florida

ABSTRACT

The 2004-2005 Special Year at the Department of Mathematics, University
of Florida is in Number Theory and Combinatorics and features two
parallel programs. The Number Theory part of Special Year 2004-05
will be highlighted by two conferences: (i) An International Conference
on Additive Number Theory in November 2004, and (ii) An International
Conference on Arithmetic Geometry in February 2005. The highlight of
the Combinatorics part of the Special Year Program will be (iii) A
Workshop on Automated Deduction in Geometry in September 2004, and
(iv) The Third International Conference on Pattern Avoiding
Permutations in March 2005. There are plans to publish the refereed
proceedings of these conferences. Topics for these conferences have
been chosen from areas of our research strengths but involve broader
themes. The conferences will be augmented by lectures throughout
the year on the latest trends in research by eminent visiting
mathematicians, as well as History Lectures which should appeal
to students. The Additive Number Theory Conference will involve
three main themes: partitions and q-series; Goldbach, Waring type problems,
and sieves; and basis and density questions. The Arithmetic Geometry
Conference will be devoted to p-adic methods in arithmetic and algebraic
geometry. Automated Deduction in Geometry Workshop will be a forum to
exchange ideas and views, to present research results and progress,
and to demonstrate software tools on the intersection between geometry
and automated deduction. The Conference on Pattern Avoiding Permutations
is on the exact and asymptotic enumeration and structural analysis,
of permutations with subsequence conditions. This area is connected
to the theory of Young tableaux, labeled trees, partially ordered sets,
and planar maps, as well as sorting and searching.

The Special Year Program in Number Theory and Combinatorics
will be of interest even to researchers outside of mathematics and
therefore will strengthen ties with other disciplines. Number Theory is
the study of the properties of whole numbers and is the oldest branch
of mathematics. Topics such as partitions, elliptic curves, and
cryptography, covered by our conferences in number theory will be
of interest to physicists and those in computer science. Combinatorics is
the study of discrete collections of objects, and how they can be arranged
and counted efficiently. The areas covered by the conferences in
combinatorics will be of appeal to computer and engineering sciences.
Number Theory and Combinatorics are ideally suited to attract the attention of
non-experts and students to significant developments in mathematics.
Thus the History Lectures in these areas will inform graduate and
undergraduate students as to how fundamental ideas and concepts
developed, and this in turn will help in attracting talented
students to take to more advanced study in mathematics.